Synthesis and Properties of Ternary Metal Pnictides and Pnictide Oxides

9505565 Kauzlarich This research is concerned with the synthesis and characterization of transition metal pnictide and pnictide oxide compounds. Efforts will be focused on the combination of the heavy main group pnictogens such as arsenic, antimony and bismuth, the first row transition metals, and the alkali, alkaline earth, and rare earth metals. The Zintl concept will be used to direct the synthesis of new compounds. One objective of this research is to synthesize new ternary compounds of the type A+ + (MX)- , where M is a transition metal, A = alkali or alkaline earth metal, and X = semimetal or main group element. These new compounds can be considered Zintl compounds if the d electrons are localized on the metal and the bonding description remains the same. This strategy for the synthesis of new compounds is unique to solid-state chemistry and is a directed synthetic effort. In addition, transition metal pnictide oxides will be synthesized and characterized. Unlike most compounds containing a pnictogen and oxygen atom, there is no bonding interactions between the two in these compounds. They are layered materials and one might expect to find unique properties associated with compounds that crystallize in this structure type. New compounds will be characterized by powder and single crystal x-ray and/op neutron diffraction, resistivity versus temperature, magnetization versus field and versus temperature, thermogravimetric analysis, differential thermal analysis, epr, IR and UV-vis spectroscopy. %%% This project will result in the synthesis of new compounds that may exhibit novel magnetic and electronic properties and will expand the knowledge concerning structure, properties, and bonding of materials at the interface between Zintl compounds and intermetallics. In addition, structure-property relationships will be studied. Research on ternary transition metal pnictides will provide new insight on the development of solids with novel properties. Pnictide Oxides are a small class of compounds that have not been well characterized to date.